Scholarships for Upward Mobility

The project is a concerted effort to enable talented financially-needy students to complete degrees in the areas of engineering, science, information technology, computer science, and mathematics. The project is attracting, retaining, and graduating a greater number of students and is increasing the number of under-represented groups in science, technology, engineering, and mathematics (STEM) disciplines. This project provides 24 to 28 scholarships annually over a period of four years to support academically talented and federally defined financial needy students. Recruitment strategies are targeted at under-represented groups of students, women and students with disabilities. Seamless pathways are being developed to ensure students earn an associate degree in these disciplines and gain entry to the workforce or transfer to a university to complete a baccalaureate degree.

One of the intellectual merit of this activity is that it is creating discipline-specific cohorts in STEM that are developing students' abilities to engage in scholarly collaborative efforts and providing peer-to-peer support mechanism for increased student success and retention. Another item of merit is the project's infrastructure. Tacoma Community College's is one of the top performing community colleges in the nation as ranked by the 2005 Community College Survey of Student Engagement, based on its nationally recognized curriculum and assessment strategies developed for and applied in engineering design courses. In addition the College recently built new science/engineering and IT buildings deliberately designed to accommodate group interaction with state of the art computer support systems.

The broader impact of this project is that it directly addresses a key factor at the heart of the shortage of engineers and scientists, specifically the applicant pool. Increasing the recruitment and retention of academically talented STEM students directly increases the graduation rates of students in these disciplines and ultimately increases the pool of qualified applicants. An additional broader impact of this project is the engagement of community agencies, four year institutions, employers, and a leveraging of combined efforts to develop strategies to solve global community issues to improve recruitment, retention, and graduation of underrepresented minority groups in STEM disciplines. The impact of this project is further broadened through the role the scholars are playing as ambassadors for the program serving as role models to their native community constituencies. Additionally, the project leadership team is creating and facilitating a feedback/dissemination meeting in which regional principal investigators for other student centered programs in the Tacoma region (including CSEMS, S-STEM, Robert Noyce and STEP awards) discuss best practices, identify areas of concern and develop strategies to improve the implementation of all of these grants. Results of the project are being disseminated through state, regional and national conferences.